Learning from the Mexican Earthquake of September 19, 1985: In-situ Determination of Dynamic Soil Characteristics

This research program, which involves collaboration between the University of Maryland and the Universidad Nacional Autonama de Mexico (UNAM), will utilize the Random Decrement Technique to determine the damping properties of soil at different strain levels using measured seismic records. The ability to determine damping properties in-situ will permit a more reliable calculation to be made of site response to earthquake loading.